Funding to Support Student Attendees to PLDI 2009

This proposal requests funds for student travel to the Programming Language Design and Implementation (PLDI) conference in Dublin, Ireland. This is an important conference for students in the programming language research area. Student attendance provides an international experience for the students and helps build a community that will become the next generation of global researchers.